Student Travel Support for the 26th IEEE International Conference on Software Maintenance (ICSM 2010)

This award funds travel for students at US-based institutions to attend the International Conference on Software Maintenance in Romania. Attending enables students to hear the latest results in the field, meet established researchers, and build community with the next generation of researchers. The international dimension supports the objective of a well-trained global workforce.